Engineering Research Equipment: Equipment for Application of Molecular Biology Techniques to Studies of Environmental Engineering

9700339 Raskin This is an award to assist in the purchase of equipment for conduct of research on microbial ecology of biological processes used for treatment of wastewater, bioremediation of xenobiotic compounds, and for the detection and viability of waterborne pathogens. The major use of the equipment will be for research on performance of anaerobic bioreactors, development of an oligonucleotide probe data base and to study causes and control of foaming in suspended growth bioprocessing reactors. In addition the equipment will support research by the investigator's colleagues Dr. Snoeyink in his research on adsorption water treatment processes, Dr. Marinas in research on chemisorption capacity of titanium dioxide for treatment of air, and Drs. Werth and Sanford who are working on insitu bioremediation of contaminated aquifers. This award will provide the investigator and her colleagues with equipment that can be used to address a unique approach to studying anaerobic ecosystems and re-addressing the "long- standing problems" of foaming and bulking experienced with suspended growth bioreactors as well as the newer challenges in nutrient removal from wastewater by use of biological processes. The proposal leading to this award was submitted in response to NSF 93-155, Research Equipment Grant Program. ***